U.S.-Venezuela Cooperative Research on Interpolation and Approximation

This U.S-Venezuela award will support Professor Cora Sadosky of Howard University in a research collaboration with Professor Mischa Cotlar of the Universidad Central de Venezuela. The researchers intend to work on problems of approximation and interpolation of functions in several complex variables. The approach will focus on their recent extensions of classical techniques involving approximation and interpolation of functions in the one-dimensional case to many dimensions. The proposed work continues a collaboration started several years ago that has produced more than twenty papers and presentations in several international meetings. In addition, it has potential applicability to various fields of science and engineering, for example electrical engineering and geophysics.